Evolving Minds: Promoting Causal-Explanatory Teaching and Learning of Biological Evolution in Elementary School

Natural selection is a fundamental mechanism of evolution, the unifying principle of biology. It is central to understanding the functional specialization of living things, the origin of species diversity and the inherent unity of biological life. Despite the early emergence of tendencies that can make evolution increasingly challenging to learn over time, natural selection is currently not taught until middle or high school. This is long after patterns of misunderstanding are likely to have become more entrenched. The current research responds to this situation. It targets elementary school as the time to initiate comprehensive instruction on biological evolution. Adopting a teaching and curricular approach that will be novel in its integration of custom explanatory storybook materials with hands-on investigations, it seeks to promote third grade students’ understanding of small- and large-scale evolution by natural selection. By studying students across multiple school districts, this research will shed light on the benefits to diverse students of instruction that focuses on supporting children’s capacities to cogently explain aspects of the biological world rather than learn disparate facts about it. It will also illuminate the value of simple tools, like explanatory storybooks, for elementary school teachers who are often expected to teach counterintuitive topics such as natural selection while not feeling confident in their own understanding.

This project will investigate changes in Grade 3 students’ learning and reasoning about living things during implementation of a guided inquiry curriculum unit on evolution by natural selection that emphasizes causal-mechanistic explanation. Classroom inquiry activities and investigations into a range of real-world phenomena will be framed by engagement with a sequence of innovative custom causal-explanatory storybook, animation and writing prompt materials that were developed under prior NSF support to promote transferable, scientifically accurate theory- and evidence-based reasoning about natural selection. In response to the distinctive challenges of life science and evolution learning, the project will integrate and thematically unify currently disparate Next Generation Science Standards (NGSS) content and practice standards to create a comprehensive unit that addresses all three NGSS dimensions and is accompanied by evidence-based approaches to teacher professional development (PD). Using a design based research approach, and informed by cognitive developmental findings, this 4-year project will engage at least 700 students and their teachers and include partners from at least four school districts, Boston University, and TERC.

The Discovery Research K-12 program (DRK-12) seeks to significantly enhance the learning and teaching of science, technology, engineering, and mathematics (STEM) by preK-12 students and teachers, through research and development of innovative resources, models, and tools. Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for proposed projects.